Study of Building Material Emissions and Indoor Air Quality and Innovative Courses Dealing With Building Systems

96233864 Chen The objective of the research is to develop: A suitable turbulence model for accurately predicting room airflows; A detailed numerical method for calculating the emissions from building materials; A simplified method of determining material emissions for industrial use; A procedure to investigate the impact of material emission on indoor air quality and building energy consumption. The method used will be the computational-fluid-dynamics (CFD) technique with a two-layer turbulence mode. The CFD code will be validated by detailed flow and thermal measurements in a full- scale test chamber and by emission data obtained from a small- scale and a full-scale test chamber of stainless steel. The research will investigate material emission, indoor air quality, thermal comfort and energy consumption of buildings simultaneously for the first time. The results of this project will provide the basis for the development or improvement of industrial standards for material testing for obtaining reliable emission data. This will help building designers and owners to select various types of building materials for better indoor air quality. This education will strengthen the Building Technology Program at MIT. This provides a unique opportunity for engineering and architectural students to obtain experienced work with colleagues in the complementary field in the design of healthy buildings with energy efficiency. The curriculums to be developed can also be used by other schools and organizations. ***